Micromechanics of Damage: Percolation and Fractals on Random Fields

Homogeneous materials are often composed of microscopic units which interact with each other to produce effects that appear on the macroscopic scale. This research involves an attempt to analyze macroscopic stress-strain behavior by analyzing behavior of the interfaces between the microscopic units as a stochastic process.